IEEE Symposium on Security and Privacy - Student Travel Support; May 2010; Oakland, CA

This award will support travel of approximately 8 U.S. students to the annual IEEE symposium on Security and Privacy, held this year on May 16-19, 2010. This is one of the primary research conferences in this field. Attending this particular symposium can be of significant value in starting students on effective careers in this field, which is of vital national interest.